Riviere-Fabes Symposium

This award supports the participation of graduate students, postdocs, and other early-career mathematicians in the Twenty-Third Riviere-Fabes Symposium, held at the University of Minnesota on April 24-26, 2020. The award gives junior researchers, researchers who are members of underrepresented groups, and researchers without other sources of funding a chance to attend and participate in this conference, thus helping to promote the future generation of scientists working in mathematical analysis.

The symposium focuses on recent developments in the field of analysis, with this year's program having a particular focus on the analysis of partial differential equations (Navier-Stokes, Schroedinger, elliptic, dispersive, porous media equations, optimal regularity). More information can be found on the symposium web page: https://math.umn.edu/riviere-fabes-symposium/riviere-fabes-2020